Scientific Computing Research Environments for the Mathematical Sciences

The Department of Mathematics at the University of North Carolina at Chapel
Hill will hire a systems administrator for the Applied Mathematics Program,
dedicated to the support of research in the mathematical sciences. The
systems administrator will facilitate research in several projects, including
in particular: the numerical calculation of enhanced diffusivities in
time-dependent, incompressible flows; the numerical assessment of weakly
compressible effects arising in anelastic fluid equations; numerical simulations
of flows of liquid crystalline polymers; internal waves in two-fluid systems;
and adaptive methods for immersed boundary problems. In addition to these
projects by investigators Camassa, Forest, McLaughlin, and Minion, the
systems administrator will also facilitate the computational scientific
research of new hires David Adalsteinsson and John Lowengrub.